Higher Dimensional Algebraic Varieties

The principal investigator plans to work on three
problems. The first is to find relationships
between the topology of a real algebraic variety and
its complex geometry, more precisely its Kodaira dimension.
The ultimate is to prove that a topologicaly complicated
(for intance hyperbolic) threefold can be represented
only by a variety of maximal Kodaira dimension.
The second project is to do a systematic investigation
of the connections between hyperbolic differential equations
and real algebraic geometry. Many instances of this have been
noted in the past, but no systematic theory was ever developed.
The third project is the study of arithmetic properties of
rationally connected varieties, especially the existence of
rational points and curves over fields which are not algebraically
closed. It is quite likely that geometry governs these questions
over local fields, while the problems over global fields are more
arithmetic in nature.

Hyperbolic differential equations describe processes that
change with time. For instance the heating up of a furnace,
the flow of water through a turbine and the spreading of bacteria
in a medium can all be described, more or less accurately, by
hyperbolic differential equations. These differential equations
and their solutions are rather complicated, both theoretically
and computationally. It has been noticed that many questions about
these differential equations can be approached through simple
algebraic manipulations. It is the principal investigator's plan
to put these diverse observations into a general conceptual
framework. The principal investigator expects that this will
lead to several new applications in the theory of hyperbolic
differential equations. Conversely, relating the abstract
algebraic machinery to physical phenomena in a new way should
also provide insights to the behaviour of algebraic systems.